International Travel Grant to Attend the First International Conference on Molluscan Shellfish Safety in Sydney, Australia, November 14-17, 1994

9423809 Sobsey This is an award to support International Travel by the applicant to attend and participate in the First International Conference on Molluscan Shellfish Safety. He has been invited to present a paper titled "Improved Detection of Enteric Viral Pathogens and Indicators in Oysters and their Habitat Waters." The conference plan includes field visits to commercial shellfish growing areas and an associated research facility. The applicant also plans on visiting with the Australian Water Technologies Board in Sydney to discuss potential collaborative research on coastal waste management and related issues that affect shellfish sanitation and otherwise impact coastal water quality. This conference is a sequel to the 1989 and 1992 international conferences on shellfish depuration that were held in Florida and France, respectively. Results associated with supporting the applicant's participation in this Conference and related activities in Australia are expected to include information that can be utilized in planning the scope of future program support of research on waste management issues of special significance to coastal regions of the United States. ***